Synthetic Uses of Aminoiminomethanesulfonic Acids and Related Compounds (Chemistry)

This is a Career Advancement Award (CAA) of the Research Opportunities for Women Initiative (ROW) that is being supported by the Organic and Macromolecular Chemistry Program of the Chemistry Division. This will provide Dr. Audrey Miller, who has had a long career, primarily in teaching, with the resources, personnel and time to develop a research program. This research explores the synthetic utility of aminomethane-sulfonic acids, hydrazinoiminomethanesulfonic acids, aminoiminoacetoninitriles and hydrazinoiminoacetonitriles. The nucleophilic substitution reactions of these classes of compounds will be studied with 1) hydroxylamine, 2) a variety of enamines and 3) functionalized carbanions. The proper choice of reagents will permit the synthesis of a wide variety of 4-, 5-, 6- and 7-membered heterocyclic ring systems. These may contain multiple heteroatoms (N,S,0).